U.S.-India Collaborative Research: Low-Temperature Studies of Hall Effect and Specific Heat in Amorphous Alloys, Award in Indian Rupees

9602975 Majumdar Description: This is a U.S.-India research collaboration in condensed matter physics/materials science under the direction of Donald Naugle, Texas A&M Research Foundation and A.K. Majumdar, Indian Institute of Technology, Kanpur. The proposed research entitled Low Temperature Studies of Hall Effect and Specific Heat in Amorphous Alloys will determine the correlations between the electrical and magnetic properties of metallic glasses. While considerable progress has been made in cataloging and explaining electrical transport in paramagnetic glassy metals, the relative importance of nonmagnetic processes and those associated with magnetism and magnetic scattering processes in amorphous magnetic alloys has not been completely established. The U.S. group has been among the most active studying electron transport and surface chemistry of nonmagnetic amorphous alloys, and the Indian group has been a major factor in the study of electron transport in magnetic glassy metals. The expertise and experimental capabilities of the two groups are highly complementary and will combine well to accomplish the research objectives. Scope: In the United States the study of amorphous metals had, at one time, been far more intensive than in India. However, research priorities in the United States have shifted to other areas. Presently, no research programs are funded solely for the study of amorphous metals. The main effort on this topic in India and perhaps worldwide will be performed by Majumdar and his group at Kanpur. U.S. collaboration will insure access to major experimental research on amorphous metals, access to the resulting technology at low cost, and the furthering of basic understanding on transport in amorphous alloys. ***